Doctoral Dissertation Research: A Longitudinal Analysis of the Economic Status of Free Blacks, 1850-1860

This project begins to fill a puzzling gap in the scientific literature by
undertaking a comparative study of wealth accumulation patterns of black
and of white households, as can be learned from the manuscript schedules of
population for 1850 and 1860. To better identify undercurrent of movement
and their possible explanations, a longitudinal dataset is being compiled
that links samples of Mid-Atlantic households recorded in the US census
manuscript schedules. Modern statistical methods will be used to estimate
models of socioeconomic differences in wealth ownership and wealth
mobility. The research findings will be valuable to: (1) economists who
seek to understand historical aspects of wealth inequality; (2) social
scientists analyzing the relationship between socioeconomic differences and
social outcomes; and (3) policy makers who want to address socioeconomic
differences in wealth accumulation patterns.